Epistemology and the Diversity of Cognitive Systems: an SGTR Proposal

Proposal Abstract
SES Proposal 0137255
Epistemology and the Diversity of Cognitive Systems
Robert Cummins, University of California-Davis

This focused research and education program falls under the heading of Small Grants for Training and Research. The award supports graduate students and a postdoctoral fellow engaged in the study of diversity in cognitive systems. The basic assumption is that such diversity -- differences in architecture, resources and goals -- runs far deeper than can be accommodated by traditional epistemology. The PI holds that these differences provide a powerful prima facie reason for supposing that the Rules of Right Reason will differ substantially for systems of different types, in particular for the institution of science (which we take to be a cognitive system in its own right), for individuals, and for brains and their sub-systems. These Rules not only differ in what they require, they also differ in the basic concepts employed to describe their target systems and the norms appropriate to them. For example, it no longer seems plausible to apply epistemological concepts and norms designed to describe and evaluate the leisurely deliberations of adult human reflective consciousness to the workings of sub-personal agencies of the brain, or to the institution of science. Rather, different frameworks need be devised for cognitive systems whose functions and goals, and whose computational and representational constraints, differ widely and essentially. Our goal is to make a case for this diversity, to describe it, and to begin to outline the conceptual frameworks required to articulate the pluralistic epistemology it demands. The proposed research aims to identify exactly which computational, representational and architectural constraints are relevant to the characterization of brains, individual cognition and science as (distinct) epistemological strata, and then to use the insight gained into the nature of such systems to develop a stratified epistemology capable of handling the diversity of cognitive systems.

This SGTR also supports a training component for several advanced graduate students, who pursue dissertation projects related to the overall project as part of a larger research group, including three faculty members and a post doctoral fellow. The group meets a weekly to discuss current projects, determine progress, and delegate responsibilities for the coming week. Everyone participates by coming up with some bit of research (literature search, web search, etc.) or writing (demonstration, explanation, argument, etc.). Dissertation projects are woven into the general research program in a way that produces a symbiotic relationship between the group research projects and individual dissertations.

This model has real potential for accelerating and deepening graduate training in certain cientifically-oriented areas in philosophy. Students mature rapidly, and benefit greatly from access to post docs; learn to write grants, work as a team, present results at conferences; and to prepare jointly-authored articles. This "philosophy lab" has attracted attention from colleagues in other universities, and serves as a promising alternative to traditional advanced training in Philosophy. Thus, in addition to our scientific and philosophical findings, we hope to pioneer an alternative model for graduate training in philosophy that has proved successful in the sciences but has been difficult to apply in the humanities.